CAREER: Biomolecule-Macromolecule Interactions at Surfaces and Interfaces

Professor Alan Esker of Virginia Polytechnic Institute is supported by the Analytical and Surface Chemistry Program to study magnetic nanoparticles and their aggregation, adsorption, transport and viscoelastic properties in biomimetic lipid systems. Applied magnetic fields can alter fundamental lipid-nanoparticle interactions, which are particularly relevant for drug delivery and therapeutic applications. This CAREER award also supports the PI's goal of attracting students to macromolecular physical chemistry with innovative research experiences for undergraduates and research on enzyme kinetics as part of the physical chemistry course.

Magnetic nanoparticles have attracted considerable attention for separations, biosensing, targeted delivery of therapeutic agents and magnetic resonance imaging contrast agents. Basic research into their interactions with membranes will ultimately lead to improvements in these applications.